Latin American Symposium on Mathematical Logic XIII: Participant Support

The SLALM's (Simposio Latino Americano de Logica
Matematica) have been very successful at bring together top
researchers in logic from the United States and Latin American and
at encouraging young researchers in Latin America to pursue
further studies. Through contacts made at the symposium, some of
the most talented individuals from Latin America have chosen to continue
their development in the United States through higher degrees or
postdocs or visiting positions. The large majority of the Latin
Americans studying mathematical logic in the United States return
to their Latin American universities where they assume leadership
positions and maintain collaborations with North American researchers.
In addition to encouraging graduate students to enter the field of
mathematical logic and foundations, the SLALM's have provided a
forum for introducing, to the international logic community,
new areas of research developed in Latin America
for example, the paraconsistent logics. The SLALM's
have also foster collaborations across the Americas that have
resulted in new results in the more traditional areas.
A proceedings for XIII SLALM
is planned; the web page
http://slalm.izt.uam.mx/
gives more details about the meeting; in particular, the site
publicizes the national and international foundations that are
providing support.